University-Industry Technology Transfer in Southern EPSCoR States

9452905 Tornatzky The project will focus on research universities in seven Southern states (Alabama, Arkansas, Kentucky, Louisiana, Mississippi, Oklahoma, and west Virginia) in a region-wide effort to upgrade their technology transfer performance and practices. Operating under the auspices of the Southern Technology Council (STC), the project will develop regional performance and practice benchmarks; engage in widespread dissemination of those exemplary practices and lessons learned; focus on accelerated professional development efforts on institutions in EPSCoR states; and conduct policy analyses on relevant state and university-level practices. The project will improve the university-based technology transfer infrastructure of the Southern EPSCoR states and at the same time fully document the impacts achieved. It will also link with major academic institutions from other states in the region to use them as a source of best practices and to maximize networking and information sharing.